Imaging Science Exhibit

The museum of Science and Industry, Chicago, in collaboration with the University of Chicago, proposes to develop a major new exhibit on "Imaging Science." Imaging science is a new field rapidly emerging from its roots in the physical, biological, and behavioral sciences, and the graphic arts, and is becoming increasingly important in all areas of scientific research. The primary rationale for developing an exhibit about imaging science, and related programming, is to enhance the overall scientific literacy of four million visitors that come to the Museum each year. In view of the scientific, medical, educational, and cultural value of images, the Museum and University of Chicago believe that an exhibit on imaging science will have broad appeal to museum visitors of many different ages and backgrounds. Today, scientific imaging empowers us to look inward, at the infinite complexity of ourselves, and outward to the edge of our universe. The main thrust of the exhibit will be to teach visitors how images communicate knowledge. Technological advances in computer workstations, that are revolutionizing scientific study, will be highlighted. Exhibit sections will also identify imaging science breakthroughs that will impact the lives of students and members of the workforce in the 1990s and beyond.